Development of STM and AFM in Water

This work consists of the development of a scanning tunneling/atomic force microscope which can be used to understand the process by which scanning tunneling microscope image large aggregates of insulating molecules. Methods will be developed for imaging molecules in electrochemically-controlled environments for sequencing nucleic acids by metallic labelling of selected basis, and for exploring nucleic acid structure as a function of sequence and legend binding.//